Joint Workshop in Ordinary and Partial Differential Equations, Nonlinear Functional Analysis; Rio de Janeiro; (Brazil STI) Oct 1-5, 1990

This U.S.-Brazil Science and Technology Initiative (STI) award will support a program planning workshop in the area of partial differential equations. The purpose of the workshop, organized by Professor Paul Rabinowitz of the University of Wisconsin and Professor Jairo Figuereido of UNICAMP, Sao Paulo, is to stimulate cooperative research between U.S. and Brazilian mathematicians. As such, the workshop will try to address the following topics: diagnostic of on-going research efforts in both the U.S. and Brazil in the area of partial differential equations; identifica- tion of areas of common interests and likely future collaborators; and organization of joint planning activities for cooperation in the short, medium, and long term.